U.S.-Japan Seminar: Macromolecular esign for Advanced Materials; November 6-12, 1993; Napa Valley, California

This award supports the participation of 13 U.S. scientists in a U.S.-Japan Seminar on Macromolecular Design for Advanced Materials, to be held in Napa Valley, California November 6 to 12, 1993. The co-organizers are Professor Virgil Percec of Case Western Reserve University and Professor Yukio Imanishi of Kyoto University. The focus of the meeting will be on the most recent advances in the elaboration of novel polymerization methods and their use in the design of new and well-defined complex macromolecular architectures capable of generating advanced materials with controlled optical, electronic, ionic, biomedical, high-strength and other special properties. This meeting is the sixth in a series of U.S.-Japan seminars in this field held over a period of 18 years. The seminar is timely because advanced materials underlie current and projected developments in the electronics, communications, aerospace, automotive, and health care industries. Important contributions are being made in each of these areas in the United States and Japan, and increased exchange of ideas and information should lead to further collaborative research between scientists in the two countries.